Novel Inorganic/Organic Hybrid Photonics Material via Laser Assisted Molecular Beam Deposition

9526024 Prasad The research described in this proposal is designed to generate novel composite materials for photonics applications. Thin films of the proposed inorganic:organic hybrid materials will be fabricated via the laser assisted molecular beam deposition technique. The structural, linear and nonlinear optical characterization of these films will be conducted. The microenvironment of the composite will be investigated using organic fluorescent probes whose fluorescent peak, lifetime, quantum yield and anisotropy are highly dependent on the microenvironment. The optical quality will be evaluated by measuring the waveguide losses. For the investigation of the third-order nonlinear optical properties, which can be used for all optical signal processing in photonics, a combination of Kerr gate, transient absorption and degenerate four-wave mixing will be performed using femtosecond laser pulses. Also, the third- order nonlinear optical processes will be studied in planar optical waveguide configuration and in the Fabry-Perot cavity mode. For second order nonlinear optical investi- gations, necessary polar structure will be introduced in the fabricated films via the poling process. The second-order nonlinear optical materials will be studied using both second harmonic generation and electro-optic modulation. %%% A frontier area of current material science is the development of novel high performance mutifunctional materials for the application of emerging state-of-the-art technologies such as photonics, biophotonics and optoelectronics. A novel approach is presented in this proposal for the fabrication of thin films of a new class of inorganic:organic hybrid materials for photonics via laser assisted molecular beam deposition. The proposed novel inorganic:organic hybrid materials produced by this technique combine the high optical quality and environmental stability of inorganics with the fast and large nonlinear optical response of organics. The laser as sisted molecular beam deposition approach of generating inorganic:organic composites is highly unique in that it involves direct low temperature seeding of an organic vapor into a molecular beam expansion of the inorganic oxide produced by laser ablation. Films are grown directly on a desired substrate which is situated downstream in the path of the molecular beam. ***